Workshop on Computational Science for Faculty of Undergraduate Institutions

The American Federation of Information Processing Societies is conducting a Workshop on Computational Science for Faculty of Undergraduate Institutions without doctoral programs at the University of North Carolina, Asheville, during the week of August 6 through August 12, 1990. Sixteen well qualified individuals have offered to help in the organizing, planning and conduct of the Workshop. Approximately 30 participants will be selected. Of these 30 participants, at least 20 will come from those schools which traditionally accommodate undergraduates from populations under-represented in the mathematical and physical sciences. The objective of the Workshop is to assist the faculty members to enhance their curricula and attract students to courses in sciences such as computer science, mathematics, physics and chemistry. During the one week of the Workshop, it is intended to illustrate a generic model of a one semester course on "Introductory Computational Science". This will be accomplished by lectures, demonstrations, video presentations and hands-on experiences using IBM personal computers, Apple Macintosh computers and remote supercomputers.